Collaborative Research: SMA: Accurate Temperature Measurement Infrastructure and Methodology for Power, Variability, and Reliability Analysis

Simulation environments are an indispensable tool in the design, prototyping,
performance evaluation, and analysis of computer systems. Simulator must be able
to faithfully reflect the behavior of the system being analyzed. To ensure the
accuracy of the simulator, it must be verified and determined to closely match
empirical data. Modern processors provide enough performance counters to
validate the majority of the performance models; nevertheless, the information
provided is not enough to validate power consumption, thermal models, and
process variability.

Temperature and power consumption are first order design parameters for modern
high performance architectures. High operational temperatures and large power
consumption present possible limits to performance and manufacturability. While
temperature and power are dominant factors on processor design, process
variability is becoming another major constraint.

In order to address some of the difficulties associated with the validation of
power, thermal models, and process variability, we propose to use an infrared
measurement setup to capture run-time power consumption and thermal
characteristics of modern chips.

A detailed thermal model can use the measured temperatures to generate a power
detailed power consumption. The same thermal measurements will be used to
measure process variability from of-the-shelf processors. In addition, the
resulting infrastructure will be use to develop a verified thermal simulation
infrastructure and process variability models.